Mathematical Sciences: Global Bifurcations of Forced Oscillator Systems

Peckham A periodically forced oscillator is a prototypical example of a nonlinear mathematical model that is used to explain past behavior and predict future behavior of physical, chemical, and ecological systems. The investigator continues studies of two-parameter families of maps of the plane that are generated by periodically forced oscillator systems. The broad goal is to understand the qualitative behavior of these systems and how that behavior changes, or "bifurcates," as parameters in the models are varied. The project focuses on discrete dynamical systems rather than differential equations. It aims to explain parameter space phenomena as projections of "more natural" objects in the cartesian product of the phase and parameter spaces. The project includes further development of tools for "local" bifurcation phenomena, such as the birth of periodic orbits, but concentrates mostly on extending existing tools and results for local phenomena to analogous tools and results for "global" phenomena, such as the birth of homoclinic orbits. Study involves software development, numerical simulation, and analysis of both the numerics and the mathematics of global bifurcations. The project enables a more complete understanding of a wide variety of bifurcation problems, including periodically forced oscillators. It also provides tools for a more automatic bifurcation study of other families of discrete dynamical systems. The investigator continues studying a prototypical class of systems that is used to model a variety of physical, chemical, and ecological systems. The goal of the project is to study changes, or "bifurcations," in the qualitative behavior of these systems as parameters are changed. For example, the number of hunting licenses issued could be a parameter in a mathematical model of an ecosystem. There might be a critical number of licenses below which deer would survive, and above which the deer would die out. This critical number would be called a bifurcation value of the parameter. An incredibly complex scenario of bifurcations is possible, even for models that are described by very simple mathematical formulas. Hence, some level of numerical investigation is absolutely necessary. The project includes software development, numerical simulation, and analysis of both the numerics and the mathematics of the bifurcations involved. The project enables a more complete understanding of a wide variety of models. This leads to a better understanding the past and a better chance of predicting the future of systems behaving like these models, as well as for many other seemingly unrelated systems.